Travel Support: 2nd International School of Atmospheric Radar and 7th Workshop on Technical and Scientific Aspects of MST/ST Radar; Hilton Head, South Carolina

Larsen/Abstract The second International School of Atmospheric Radar will be held on November 5-6, 1995, in conjunction with the Seventh Workshop on Technical and Scientific Aspects of MST Radar/Wind Profilers. Funds are requested to support travel for U. S. students and postdocs, to attend the School.